South Carolina Center of Excellence in Advanced Technological Education Planning Grant

The South Carolina Technical and Comprehensive Education College System is planning for the development of the South Carolina Center of Excellence for Advanced Technological Education. The purpose of the Center is to provide leadership toward reform for the state, the south, and the nation in meeting the challenges of achieving success in today's high-technology marketplace, specifically in the areas of advanced science and engineering technology education. The planning objectives are to design systemic approaches for transforming technological education at the two-year college level including the following five major components: (1) Teaching/Learning Reform; (2) Instructional Technology use; (3) Faculty Development; (4) Collaboration among types of institutions; and (5) Accountability and Dissemination.Partners include all the two-year colleges in the state of South Carolina, Clemson University, the South Carolina Department of Education, the Academy for Education Development, the South Carolina State Systemic Initiative, the South Carolina Tech Prep Consortium, and numerous representatives from business and industry.